KDI: Virtual Environments to Elucidate Strategies in Complex Spatial Problem Solving

Although spatial cognition has been studied in a variety of domains,
there is still little known about the integration of spatial skills in
solving complex problems. In this research program, virtual
environment technology (VET) will be used to study complex spatial
skills and, from the results of this study, to develop effective
virtual environments to train these skills. With their interactive
and compelling nature, virtual environments can become an essential
tool for training, visualization, planning, and communication in an
unlimited variety of applications. But if VET is to reach its
potential, there must be a better understanding of how humans acquire
and integrate multi-sensory information in three-dimensional space.

The focus application of the work will be surgical training, which
provides a challenging environment for studying spatial cognition.
The performance of surgical tasks requires a broad range of spatial
processes in order to plan, navigate, and reason using complex
representations of space. The surgeon must develop a mental image of
three-dimensional anatomy based on a surface view or cross sections
from X-ray, CT, MRI, or ultrasound images. From this model and a goal
state based on experience and anatomical knowledge, he or she must
plan a strategy to gain exposure of the important anatomy and obtain
the desired result. With the advent of minimally invasive techniques,
the surgeon relies on a video image of the internal anatomy and use
instruments constrained by a fulcrum at their passage through the
skin.

This work has two synergistic thrusts. The first aims to advance
fundamental knowledge in cognitive science by examining how spatial
cognitive skills are integrated in the performance of complex tasks.
Specifically, the project will study navigation in small-scale
three-dimensional environments, mental simulation of mechanical
interactions between deformable structures, and how these spatial and
mechanical reasoning processes are integrated in solving complex
spatial problems. This work will be guided by computational models of
the construction of 3-D spatial models from multiple views. The
second thrust is to advance the state of the art in human-computer
interaction by designing intelligent systems to train and assist human
performance in spatial problem solving.